Evaluator of the Center for Microcontamination Control

ABSTRACT EEC-9711644 TANSIK This proposal outlines the function that the National Science Foundation Evaluator will perform in the Center for Microcontamination Control (CMC). The proposal discusses the CMC, and summarizes the roles the Evaluator will enact, namely qualitative and quantitative evaluations of Center activities, participation in semi-annual meetings, attendance at NSF Evaluator activities, and exit interviews with departing companies.